Topics in Theoretical and Mathematical Physics

This project in mathematical physics will carry out research in three different areas: asymptotics for the path integral when no stationary action point exists; quantum measurement theory; spectral analysis of the Master equation generator and applications to neural networks.